Biology in Action: Integrated Approaches to Teaching and Learning Science

Radford University will host a five-day conference for approximately 55-60 college biology teachers. The focus is introductory biology courses for majors and non-majors. The primary objectives of the conference are threefold. First, it will serve as a forum for presenting curricular innovations in biology teaching, including the ones developed with NSF support at Radford University. Participants will have extended opportunities to explore these new approaches through hands-on workshops, group discussions, and critiques. As a result, the conference will promote adaptation and adoption of model activities that have proven successful at various colleges and universities around the country. Second, the conference will provide a forum for participants to share their own laboratory and classroom activities. This will be accomplished through poster sessions, group discussions, and collaborative work sessions. Finally, the conference will provide a vehicle for establishing and strengthening informal information networks linking committed biology teachers throughout the country. Using conference activities as a springboard, participants will contribute to a volume of new teaching materials. This informal publication will be distributed to all conference participants and other interested biology teachers.